Sea Floor Science

The Ocean Institute will design, develop, evaluate and install "Sea Floor Science," a 5,200 sq. ft. site-wide exhibition designed in partnership with Scripps Institution of Oceanography, the Jet Propulsion Laboratory, and the Institute of Nautical Archaeology at Texas A&M University. "Sea Floor Science" will provide opportunities for families, students and the general public to use authentic oceanographic equipment, tools and technology to recreate a world of ocean research and discovery. Visitors will experience how oceanographers are exploring the largely unknown sea floor to permit better understanding of the origin of sediments and rocks, paleoclimate reconstruction as evidenced by marine microfossils, and the dynamics of oceanic lithospheres and margins. The project is a new approach to museum exhibits. It will test innovative convertibility solutions that enable public areas to serve as both teaching stations and effective exhibits. It will also implement cost-effective update strategies to keep visitors at the forefront of scientific research. "Sea Floor Science" will reach 4,000,000 people in 22 states including on-site and on-line visitors, multi-state teacher networks, videoconferencing participants, science professionals, and replication sites at science centers and aquaria nationally.